MRI: Acquisition of a Power4-based IBM SP and PC-based Scalable Display Wall for Multidisciplinary Computational Science Research

EIA-0116549
Claudio Rebbi
Boston University

MRI: Acquisition of a Power4-based IBM SP and PC-based Scalable Display Wall for Multidisciplinary Computational Science Research

This is a proposal for equipment acquisition under the Major Research Instrumentation (MRI) program to support research and student training across a broad range of advanced scientific computing applications. The proposed supercomputer and visualization instrumentation would contribute to computational investigations of subnuclear particle phenomena, the dynamics of quantum systems, space weather modeling, the electrodynamics of plasma processes in the ionosphere, managing the manufacturing supply chain, subsurface sensing and imaging systems, among many other projects.